Collapsed Riemannian Manifolds and Applications

Abstract

Award: DMS-9971360
Principal Investigator: Xiaochun Rong

We have been studying problems in Riemannian geometry related to
collapsed manifolds with sectional curvature bounded in absolute
value and applications to global Riemannian geometry and others.
We have made progress on understanding the topology of collapsed
manifolds with pinched positive sectional curvature, including
the fundamental group is virtually cyclic, the maximally
collapsed manifolds are diffeomorphic to lens spaces up to a
finite covering, the nonvanishing of the second Betti number for
simply connected manifolds. We have made progress on collapsed
manifolds of nonpositive sectional curvature, including the
existence of the local splitting structure. We have made progress
on Gauss-Bonnet-Chern type theorems for noncompact manifolds as
well as the topological invariants associated to a sequence of
certain collapsing metrics. We will continue our programs in
these areas in the near future. We will also begin to investigate
structures of collapsed manifolds with bounded diameter and a
lower curvature bound. This represents a continuation of work
proposed three years ago for NSF Grant DMS 9626252.

One of the most important developments in Riemannian geometry in
the last two decades is in the understanding for the Riemannian
manifolds which appear to be smaller than their actual
dimension. For instance, the surface of a very thin donut looks
like a circle. A major part of my research focus on such
manifolds whose curvature are also between the curvature of two
spheres of different radius. We have found restrictions on the
topological structure of these manifolds. Our progress is
amplified by the amazing fact that among all manifolds whose
curvature are between the curvature of two spheres of different
radius, all but finitely many appear to be smaller than their
actual dimension. Therefore, we have made progress on the study
with a long history: the manifolds whose curvature are between
the curvature of two spheres of different radius.